Calculus with Computers for the Mid-Sized University: Adapting and Testing the Iowa Materials

The materials and the approach to teaching calculus developed at the University of Iowa are being adapted, refined, and implemented throughout the calculus sequence. A lecture approach is integrated with an interactive computer laboratory component centered around Mathematica Notebooks. Many of the students are future mathematics teachers.